International Workshop on Statistical Modelling to be held July 27-31, 1998 in New Orleans, Louisiana

Brian D. Marx Abstract This workshop's friendly and supportive academic atmosphere brings together scientists from different nationalities, backgrounds and experiences. The workshop will concentrate on various aspects of statistical modelling, including theoretical developments, applications and computational methods, and encourages papers that are motivated by real practical problems and that make a novel contribution to the subject. Theoretical contributions addressing problems of practical importance or related to software developments are also welcome. The scientific program is characterized by having one hour invited lectures & tutorials presenting new developments,contributed papers, posters and software demonstrations. There are no parallel sessions. Contributed papers should be suitable for a 30 minute oral presentation (including discussion) and focus on motivation, statement of key results and conclusions, and emphasize examples, wherever possible. Papers and posters will be refereed by the scientific committee and accepted papers and posters will be printed in a proceedings volume that will be ready for the start of the conference. The first call for papers will be September 1, 1997 with a closing date of February 10, 1998. Notification of acceptance will be mailed by March 15, 1998. Major professors should encourage their students to attend this workshop. The program is designed to allow plenty of time for discussion and interchange between junior and senior scientists. Additionally one paper session will be devoted entirely to contributions from students. This session will be judged by the scientific committee and an award will be given to the winner of the Best Student Paper at the conference dinner on Thursday evening (July 30, 1998). The workshop language is English.